Knowledge-Based Image Analysis of the Human Brain

This effort deals with the implementation of a computer synthesis of multiple two-dimensional images to produce an overall three-dimensional image of the brain. Although several techniques are available to obtain two-dimensional pictures, no methods exist which effectively puts these together to create a three-dimensional picture of brain activity. This is important to obtain a more complete interpretation of brain activity, for cross-comparison, and for clinical interpretations.